Engineering Transfer Scholars (ETS) in Texas

This S-STEM scholars program awards scholarships to students transferring from seven different institutions, six of them community colleges, in the state of Texas into four year degree programs in several disciplines of engineering and computer science. The program targets academically talented, first generation students from underrepresented groups. Students selected to be Engineering Transfer Scholars participate in a focused learning community that includes academic and social components. The program also exposes scholarship students to undergraduate research opportunities and, through cooperation with an existing Louis Stokes Alliance for Minority Participation project, to graduate school. Approximately 80 scholarships will be provided during the life of this project.